SBIR Phase I: Integrated DC-DC Converters Using Thin-film Magnetic Power Inductors

This Small Business Innovation Research (SBIR) Phase I project will develop integrated DC-DC power converters using magnetic thin-film power inductors. Currently, microprocessors and systems-on-chip (SoCs) are powered with board level voltage regulators assembled from discrete components. As supply voltages have scaled for digital integrated circuits (ICs), this power delivery paradigm has become increasingly inefficient, as power is delivered through the resistance of the power delivery network (PDN) at low voltages and high currents. In a typical case where 100W is delivered at 1V, 10% of the total power delivered may be wasted in the resistance of the PDN. The objective of this SBIR project is to commercialize power converters utilizing inductors with precisely engineered laminations of high permeability magnetic material. This will enable a significant improvement in power converter current density and subsequently enable power supplies for microprocessors and systems on chip (SoCs) to be downconverted in the same package, or even on the same die. This new class of integrated voltage regulators (IVRs), will provide as much as 20% reduction in total power consumption for digital ICs by reducing resistive losses and enabling improved power management techniques.

The broader impact/commercial potential of this project is a reduction in power consumption for all digital computing platforms, ranging from smart-phones to datacenters. The total energy savings potential for this new class of technology is estimated at 15 billion kWh within the United States alone, this is equivalent to roughly 10 million metric tons of CO2 emissions. This technology will also significantly reduce the footprint for digital ICs enabling a significant reduction in form-factor for all classes of computing platforms. Voltage regulators utilizing integrated magnetic thin-film inductors will have cost and performance advantages over the other voltage regulator products that are commercially available. Therefore this technology is expected to have a sizeable impact on the $10 billion worldwide voltage regulator market. Furthermore, the integration of magnetic materials with CMOS will facilitate advances in other magnetic based systems, such as magnetic filters, sensors and imagers. Likewise, the experience gained from commercializing a magnetic material process module with CMOS technology will lower the technological barriers for other forms of heterogeneous integration.